U.S.-France Cooperative Research: Role of Beta-one Subunit in Skeletal Muscle DHP Receptor Functional Expression

This one-year award provides travel support and living expenses to Roberto Coronado, University of Wisconsin for his collaboration with Caroline Strube of the Universite Claude Bernard in Lyon, France. The overall objective of this project is to investigate the functional role of the beta-one subunit of the muscle dihydropyridine (DHP) receptor. Dr. Coronado will visit Lyon to learn new recording techniques for large cells. The project takes advantage of techniques developed by the French group. It addresses questions about the possible participation of the DHP receptor in neuromuscular disease.